Presidential Young Investigators Award: Mechanistic Studies of Colloidal Interactions

The focus of this PYI-directed research program will be on colloidal particles and the focus associated with their transport. One force of fundamental interest is electrokinetic lift, which arises from the relative motion of charged bodies in electrolyte solutions. Electrokinetic lift is significant to all particle transport processes including hydrodynamic chromatography, deep-bed filtration, suspension rheology, and the detachment of particles from surfaces during fluid flow. Given the broad applicability of this force, it is essential that one assesses the importance of electrokinetic lift in a given system. Previous analyses of this force have focused on two bodies bearing thin, equilibrium double layers. Such simplified models, while easy to theoretically characterize, are not technologically relevant. For example, the analyses have shown that electrokinetic lift is more important in nonaqueous media, which are characterized by thick, nonequilibrium double layers. The PI will initiate an in- depth analysis of this force, removing first the equilibrium double-layer restriction and, second, the thin double-layer restriction. These theoretical studies will be coupled with experimental observation of lift. Later, transport studies will then be extended to focus on the role of colloidal forces in the rheology of dispersions with application to coatings and films. The results of this work will greatly enrich the fundamental understanding of the transport of colloidal particles.